A Planning Proposal for an I/UCR Center for Advanced Studies in Novel Surfactants

Abstract Somasundaran, P./Columbia U. EEC-9708150 This award to the Columbia University is to study the feasibility of establishing an Industry/University Cooperative Research Center on the characterization and development of novel specialty surfactants for applications in chemical, pharmaceutical and biological consumer products. The Center will also emphasize on the development of knowledge base on the relationship between structure of different surfactants for specific industrial applications. The research program, structure and organization of the proposed Center will be studied in an industry/university workshop.